NATO EAST EUROPE: Collaborative Research in Computational Geometry: Algorithms and Properties for Proximity and Triangulations

WPCA 2 B V M Z Courier 10 2 x x x x G x @ 2 X @ C.ITOH F10-55 Printmaster CIF155PR.PRS x @ x x / |X @ 2 / ? #| x 9355507 Dickerson Collaborative Research in Computational Geometry: algorithms and properties for proximity and triangulations. Exchange visits with a Romanian scientist will provide opportunity for collaborative research in computational geometry. Research in proximity problems and triangulations will be enhanced by a visit of the senior American scientist to the host Romanian university and a subsequent visit from the guest scientist to the United States. ***